Protein Fold Modeling and Recognition From Multiple Structures

The objective of this project is to develop methods for protein fold modeling and protein fold recognition based on multiple structure information. Multiple structures sharing the same fold will be aligned to each other using 3-D structure alignment methods. A statistical model for the fold will be constructed using the aligned structures and a training data set of structures. Methods will be designed to assess the compatibility of a query sequence to the fold model. Predicted structural attributes of the query sequence will be incorporated into the design of scoring schemes. Effective utilization of multiple structure information is expected to increase the success rate of fold recognition and the accuracy in threading sequence to fold. If successful, the results of this project will help to elucidate the functions and structures of many coding sequences from the large scale DNA sequencing projects.